Mathematical Sciences: Research in Mathematics

This Research Experiences for Undergraduates award will support ten students engaged in a nine-week program of research spanning a broad spectrum of the mathematical frontier. The grant continues REU support based on a plan of broad faculty involvement and problem selection. Each student will be involved in one of four possible research areas, with between one and three students working in each area. Past experience at many REU sites indicates that students are unsure of their own interests and profit from learning specifics from several faculty advisors. The advisors will be joined by faculty from Florida A&M University. Mathematical areas will include the study of fundamental groups and covering spaces. Using algebraic and topological techniques efforts will be made to construct covering spaces of various manifolds. Work will also be done using an interactive graph program to study mapping properties of complex functions as representations of idealized flows. Modern game theory will be employed to study conditions under which noncooperative games have cooperative solutions. Studies on dynamical systems will focus on discretizations of the barotropic vorticity equation of fluid dynamics. There will be several other scholarly activities on the campus at the same time as this project. The opportunities for mixing among students in different disciplines will create a stimulating environment. Joint social events are planned.